Undergraduate Faculty Advancement in Mathematics (FAIM)

Two, two-week summer workshops will be held to acquaint undergraduate professors with new curricular ideas in the areas of discrete mathematics, geometry, and their applications. Leaders in each field, both academics and practitioners, will interact with fifty participants from all parts of the Nation to enable them to understand new developments in these mathematical fields and to prepare applications-based materials suitable for use in their classrooms. Areas to be discussed are problem- solving strategies using combinatorics and graph theory, applications of graph theory to social sciences, graphical algorithms in discrete math. In geometry, emphasis will center on tilings, combinatorial geometry, and studies in computational geometry. A formal follow-up session will be held at the national Joint AMS/MAA meeting in January of 1989, where participants will discuss the impact of the training on their campuses. This meeting will be preceded by two teleconferences, during which the participants and the experts can continue their dialogue and refine the curricula materials developed at the conference. In addition to the NSF funds, participants' institutions will contribute about 20% in travel costs to the operation of the project.